RAS Proto-Oncogene Activity in Corpus Lutem Function

It was recently discovered that, in the rat, the amounts of a particular protein, the K-ras p21 protein, contained in the ovary mirror the pattern of secretion of progesterone from the corpus luteum. Furthermore, when an antibody against this protein was incorporated into luteal cell in vitro, progesterone secretion from these cells was significantly decreased, thus demonstrating that this protein plays a role in the production/secretion of progesterone by the luteal cell. It is the objective of this proposal to determine the specific way in which the K-ras p21 protein affects luteal progesterone secretion and to determine whether this p21 protein plays a role in the secretion of other hormones from the luteum. The K-ras p21 protein is present in all mammalian cells. Thus, the results of the proposed studies will have a significant impact upon the understanding of ovarian hormone secretory mechanisms as well as our understanding of the ways in which all mammalian cells respond to hormones and growth factors.